Combinatorial Number Theory

Freiman's Theorem says that given a set A, if the sum
set (i.e. the set of sums of two elements in A) is not too big,
then A can be included in the homomorphic
image in the set of integers of a d-dimensional box with integer
coordinates. We propose
to sharpen our bound on the size of the box. We would also like
to improve our
results on some conjectures made by Erdos and Szemeredi
in combinatorial number theory,
which says that the sum set and product set cannot both be small.
We would like to generalize some of the results to h-fold sum or
product and sum-product problems along graphs.
The importance of these and similar issues became more
apparent in recent years because of their relation to issues in
computer science and harmonic analysis. Important contributions
along this line were made by Fefferman and Gowers.

One of the features of several current developments in mathematics
and applied mathematics is the emergence of issues with a
combinatorial flavor, sometimes in seemingly unrelated questions.
Some of these issues turned out to have already been studied in
earlier days with different motivations. Well-known examples of
this phenomenon is the revitalization of mathematical topics such
as graph theory and computational algebra under impetus of
computer science, in particular complexity theory and the theory
of algorithms. My work in combinatorial number theory has this
feature. But besides an interest from part of the computer science
community, it does primarily belong to an active research
direction in harmonic analysis and differential equations.